MRI: Aquisition of Research Computational Equipment

EIA-0215583
Patrick O'Leary
Kenrick Mock
University of Alaska Anchorage

MRI: Acquisition of Research Computational Equipment

This proposal from an EPCoR state, aiming at performing collaborative research on computational and visualization aspects of various application areas, targets interactive computational environments and intelligent systems; more specifically, parallel processing, scientific visualization, and intelligent systems. The work, requiring a high performance infrastructure, supports complex computing and the ability to visualize, store, and easily retrieve large data sets. The advancement of research techniques again requires significantly improved distributed computing and visualization capabilities. The computational steering tools require analysis involving consistency, latency, scalability, and perturbation costs. Research activities in an Interactive Computational Environment (ICE) involve:
1. Seamless Monitoring and Steering of High-Performance Distributed Computations,
2. Realistic Simulators, and
3. Computational models.
The intelligent systems component explores information systems (new techniques and applications for machine learning, e.g., user profiles), information relevance and retrieval, efficient methods for human-computer interaction, and multi-agent research.